Process Interpretation of Texture in Plutons, Veins, and Porphyroblastic Rocks

9404872 Means A common problem in tectonic fabric analysis is to relate with confidence observable fabric features to particular tectonic processes. This problem is made more difficult by the high temperatures and sluggish kinematics that are typical for silicate minerals. This work follows considerable prior research using analog materials that are near the melting point at room temperature. The deformational behavior of solid frameworks of crystalline grains with intercrystalline melt present will be modeled by a mixture of three crystalline ammonium compounds. Similarly, the growth of prophyroblasts over existing fabrics will be investigated. Results will provide unique insights into the formation of deformation fabrics.